Revitalizing the Undergraduate Physical Chemistry Course: A Faculty Workshop

The three week physical chemistry workshop is being conducted for 20 undergraduate physical chemistry instructors. Its goal is to introduce the participants to modern computational chemistry, state to state reaction dynamics, atmospheric chemistry, physical chemistry of surfaces, and the principles and applications of superconductors. Each participant is committed to implementing aspects of the summer workshop during the following academic year and to reporting on the implementation to fellow participants and to the project director.